ITR: Interactions of Multithreaded Computing and Operating System Design

Proposal Number: 0085670
Title: Interactions of Multithreaded Computing and Operating System Design
PIs: Henry M. Levy and Susan J. Eggers

Abstract:

Over the next decade, highly scalable computer systems consisting of
hundreds or thousands of nodes will become necessary to meet the
demands of emerging global applications, such as Web and database
servers used for Internet commerce. These applications must be
multithreaded to handle the thousands of simultaneous requests. One
promising technology for this scalable server domain is the use of
multithreaded processors; for example, Compaq has announced
Simultaneous Multithreading (SMT) support for its Alpha processor
in the 2002/2003 time frame.

Unfortunately, no research has been conducted on multithreading
support for operating systems or on how to structure operating systems
for multithreaded CPUs. Yet the OS may be crucial in this environment;
e.g., measurements show that a loaded web server can spend 75% of its
time in the OS. The proposed research will develop the software
environment to complement the multithreaded hardware environment
provided by SMT and other fine-grained parallel processors. The
research sits squarely between architecture and operating systems,
examining (1) the design and performance of multithreaded processors
to support OS needs, and (2) the structure of operating systems in
light of the capabilities of multithreaded processors. The research
will focus on these questions in the domain of highly parallel,
request-driven workloads, such as Web servers and database servers.